6th Conference on the Intersections of Particle and Nuclear Physics to be held in Big Sky, Montana

This grant provides partial support for the participation of advanced graduate students in the 6th Conference on Intersections of Nuclear and Particle Physics, to be held in Big Sky, Montana 27 May through 2 June 1997. The Conference is becoming increasingly important as the more traditional of nuclear and particle physics practitioners join forces to deal with problems of common interest.